Undergraduate Research in Biomedical Engineering

In this program, undergraduate engineering students participate in research projects in the laboratories of members of the Biomedical Engineering Department of the Johns Hopkins University. Opportunities are available for basic research on biomedical instrumentation, sensors, prosthetics, biomaterials, biomechanics, neurophysiology, and neural modeling, cardiovascular physiology and modeling, mathematical modeling, and membrane and cellular physiology. Students are recruited from institutions in the Baltimore-Washington area, including Johns Hopkins University, Morgan State University and Howard University. Special effort is made to attract underrepresented groups to the program. Participants work under the day-to-day supervision of faculty members on research projects which the students have developed under the guidance of a faculty mentor. Students discuss their research projects in a weekly seminar series which gives students experience in presenting research plans and results and in discussing their work with their peers. A limited number of students will present results of their projects at national meetings,, with financial support from the School of Engineering.